U.S.-Korea Planning Visit: Development of a Service Mobile Robot

0230782
Sooyong Lee

This award supports a planning visit for developing collaborative research work in autonomous robot navigation with researchers at Korea Institute of Science and Technology (KIST) in Korea. Autonomous robot navigation is one of the key areas in mobile robots that would be used for various applications such as vacuuming, remote monitoring, and transporting disabled or elderly people.